Biochemistry of 2,4,5-trichlorophenoxyacetic acid degradation

Although polyhalogenated aromatic compounds are major environmental pollutants, little is known about the enzymes involved in the biodegradation or detoxification of these compounds. We propose to use the degradation of 2,4,5-trichlorophenoxyacetic acid (2,4,5-T) by Pseudomonas cepacia AC1100 as a model for the biodegradation of polyhalogenated aromatic compounds. We propose to identify, purify, and characterize enzymes involved in 2,4,5-T degradation. After one of the enzymes is purified, a partial amino acid sequence will be determined. Finally, the structural gene for the protein will be cloned using DNA probes constructed with amino acid sequence data about the enzyme, and characterized. The results from our work and additional genetic information about 2,4,5-T degradation from Chakrabarty's group will together form an important contribution to our understanding about microbial degradation of polyhalogenated aromatic compounds. %%% Polyhalogenated aromatic compounds are major environmental pollutants; however, little is known about the biochemistry of microbial degradation of such compounds. In order to use biological approaches to remove these compounds from our environment, it is necessary to understand the biochemistry of microbial degradation of these compounds. We proposed to use the degradation of 2,4,5-trichlorophenoxyacetic acid (2,4,5-T) by Pseudomonas cepacia as a model system to study the biochemistry of microbial degradation of polyhalogenated aromatic compounds. We will identify and isolate enzymes involved in 2,4,5-T degradation and clone the corresponding genes encoding the enzymes. The results from this work will provide fundamental information on microbial degradation of polyhalogenated aromatic compounds.